Discussion Conference on Recent Advances in General Relativity; May 2-5, 1990; Pittsburgh, Pennsylvania

This proposal is for a conference in the area of general relativity. The organizers view this as a chance to bring researchers in classical relativity, astrophysics and quantum gravity together to discuss common problems. In recent years there has been a bridging of the gap between these disciplines and cross discussion is clearly warranted. For the first time results from mathematical relativity are being used in other more familiar branches of physics. These include pulsars, nuclear matter, and gravitational radiation. In the micro domain, the interface between general relativity and high energy physics is an active area of research. Cosmology, quantum gravity, "worm hole" physics etc. have benefitted from ideas originating in mathematical relativity. Similarly, relativity has benefitted from activities in QCD. These developments clearly show the unity of many areas of physics and the need for conferences encouraging cross fertilization. Finally, the organizers wish to use the occasion of the conference to honor Professor E. T. Newman of the University of Pittsburgh, the current President of the 60th International Society for General Relativity, on his birthday.